CAREER: Modeling Watershed Flooding and Adaptive Flood Management: An Integrative Plan for Research, Teaching, and Learning

As population growth and urban development continue to expand in the coastal margin, flooding poses a
major threat to human safety and the integrity of the natural environment. To mitigate the adverse
impacts of coastal flooding, decision makers are increasingly advocating watershed or ecosystem
approaches to management. While it is argued that some of the most serious flood hazards are the result
of a failure to understand the regional ecological context, little empirical research has been done on how
growth and development patterns increase the threat of floods at the watershed level and how
communities respond over time to repetitive flooding events.

My career plan will address this need by implementing an interactive research and educational program
on flood mitigation, sustainable watershed management, and policy learning. It will develop a framework
for adaptive decision making for coastal flood hazards by integrating research, education, and information
dissemination. The research component will focus on the impacts of wetland development on coastal
watershed flooding and policy learning at the community level to mitigate the adverse impacts of flood
damage to the human and natural environment. A two-phase longitudinal research design will employ
both quantitative and qualitative analyses to investigate flooding problems in Texas and Florida. Phase
one will use Geographic Information Systems (GIS) to examine the spatial pattern of wetland
development over a ten-year period and correlate this development with coastal watershed flooding.
Phase two will identify thresholds of policy learning by examining how communities adjust and adapt to
repetitive flooding. Both research phases will use multivariate analysis to measure the effects of wetland
development on flooding and the effects of flooding on policy adjustment while controlling for
socioeconomic, biophysical, and other contextual factors. The education component of the career plan
will develop place-based learning modules on coastal watershed management and flood mitigation. A
series of interdisciplinary, problem-based seminars will provide an authentic learning experience to
prepare future scientists, teachers, and policy makers to address ecosystem-level hazards issues.

Intellectual Merit of Proposed Plan
The intellectual merit of the research is based on advancing knowledge of the causes of coastal watershed
flooding and showing how to adapt policy mechanisms to mitigate floods. Results will contribute to a
decision-making framework for flood mitigation by increasing understanding of the specific type, size,
and location of wetlands that mitigate flooding and provide guidance to watershed planners for managing
adaptively over time. This understanding is critical given the continued development of coastal areas and
the increasing vulnerability of human populations to coastal flooding. One of the unique features of the
proposed research will be the utilization of data sources that have been underutilized in the analysis of
wetland loss. The national wetland permit and USGS flood gauge databases offer important opportunities
to conduct an empirical study on watershed flooding.

Broader Impacts of Proposed Plan
While the project will contribute to scientific understanding and management capabilities, it will also
promote teaching and learning on system-wide ecological problems. By building on participation in the
University.s NSF sponsored Informational Technology and Science Program and Sustainable Coastal
Margins Program, the project will integrate research on watershed management and flood mitigation with
education and training to solve these issues. Interdisciplinary, place-based learning modules will train
students and teachers to understand and act upon complex ecosystem management problems through
problem solving, field experience, and the development of watershed case studies and associated
websites. Courses during the academic year will target graduate students, while summer sessions will
also include K-12 teachers. Another positive impact of the project will be recruitment and training of
students from underrepresented groups. These individuals will play a vital role in both the research and
educational components of the project. Finally, the dissemination of results will benefit the academic and
policy making community. In addition to presenting research results at conferences and workshops, the
information will be shared with public decision makers.